U.S.-China Cooperative Research: Magnetic Resonance in Concentrated Spin Glasses

This proposal concerns research on the dynamics of spins in alloys which become spin glasses at low temperatures. An understanding of the spin glass state, and how the system gets to it, can be expected to provide crucial underpinning to the comprehension of such widely diverse phenomena as processing of information in the brain, development of particular strains in a species, and optimization of multichannel comunications. This research will be conducted at the University of Maryland, College Park, by Dr. S.M. Bhagat and Liao Shaobin, a researcher from the Department of Physics, Beijing University. This research started under the auspices of the Chinese-American Cooperative Basic Research Program in atomic molecules and condensed matter, a program of the American Physical Society. In this proposal, the scientists will study the resonant absorption of microwaves as a function of the applied magnetic field. The characteristics of the resonance will be interpreted to reveal the dynamic response of spins, the correlation between spins and the onset of internal magnetic fields contingent on the approach to the spin glass state. It is expected that a careful delineation of the spin dynamics will provide necessary information for determining a complete theory of correlations among spins in randomized systems.